SCC-PG: Towards A User-Centered and Equity-Aware Micromobility Sharing Co-Design Network to Interact with A Distressed Municipality

The objective of this Smart and Connected Communities Planning Grant (SCC-PG) project is to explore the use of micromobility resources as an affordable and flexible micro-mobility solution to connect riders with employment and other life-essential needs. It envisions a dockless electric scooter sharing program that helps alleviate mobility inequality prevalent in distressed neighborhoods of Hartford, Connecticut. Key research questions are 1) how low-income riders have been served by existing resources and infrastructures; and 2) how these riders would respond to the new interactive, user-centered program. The team proposes conducting big mobility data analysis and engages both current and potential electric scooter riders, service providers, government policymakers, and other stakeholders to form a community-driven planning roundtable. The project outcomes are applicable to other emerging micromobility systems and similar municipalities at various scales and locations. Students from underrepresented groups are recruited and trained.

This project reveals essential geospatial, infrastructural, socioeconomic, and policy factors to inform the design and distribution of micromobility resources. Through a case study in Hartford, Connecticut, the research team works with the service provider, civic partners, and rider community to gather their inputs on and co-design an equity-aware micromobility sharing program. The findings and techniques support the deployment of future micromobility systems in low-resourced or marginalized communities with mobility challenges.